CAREER: Surveys for Faint Active Galactic Nuclei

AST 0346691 Sarajedini

Dr. Vicki Sarajedini, at the University of Florida, Gainesville, will undertake a multifaceted program to study the evolution of active galactic nuclei (AGN), by using variability as a means to identify and study low luminosity AGN out to redshifts of z~1. The specific objectives are to 1. Identify galaxies containing variable nuclei at moderate to high redshifts, 2. To use current ground-based variability surveys to identify lower redshift AGN in the same luminosity regime for evolution studies, and 3. To investigate variability timescales that characterize low-luminosity AGN at a variety of redshifts. This optical survey will complement X-ray, radio and infrared surveys, and allow for the low-luminosity end of the AGN luminosity function to z~1 to be explored. At the same time, variability data will be obtained to allow for an investigation of the central engines of the AGN.

Dr. Sarajedini will train and support graduate and undergraduate students. The PI will use a portable planetarium for K-12 outreach activities that will be used extensively in a variety of modes, with the assistance of undergraduate and graduate students, along with faculty at the University of Florida.
***